Minority Postdoctoral Research Fellowship

9308050 White This three year plan of postdoctoral study will allow Mr. White, through extensive training and research, the opportunity to develop important research programs in persuasion and predjudice. ***